NUE: A Freshman-Level Introduction to Nanotechnology based on Scanning-Probe Instruments

NUE Abstract
NUE: A Freshman-Level Introduction to Nanotechnology based on Scanning- probe Instrument

This award is part of Nanoscale Science and Engineering initiative, NSF 02-148, category NUE and is supported by the CISE/CCR and ENG/EEC programs. This award supports a team led by Wolfgang Porod at the University of Notre Dame to develop a freshman-level course module which provides an introduction to nanotechnology based on content and activities centered around scanning-probe instruments. This module, which also serves as a vehicle to introduce general principles in multidisciplinary engineering systems design, will consist of lectures, hand-on experimental activities, and web-based tutorials. Assessment will be put at the heart of module development. A key component of this module will be a model version of a scanning-probe instrument, and we plan to use LEGO pieces and software since the use of standard LEGO components will facilitate module dissemination. While this module will be developed within the context of Notre Dame's existing EG 111/112 freshman course, it itself will be modular in nature, and it will be designed that the different components can be used in different combinations, as deemed appropriate for a given environment at another institution. Upon completion of this project, a workshop will be held at Notre Dame where the finished module will be introduced to interested educators.